Design and Self-Assembly of Supramolecular Photonic Materials

The focus of this research is the development of methods for the assembly of porphyrin building blocks into multi-component arrays and materials. Discrete, ordered arrays of five to ten porphyrins will be self-assembled and characterized using coordination of exocyclic ligands on the macrocycle to metal centers with appropriate coordination geometry, complimentary hydrogen bond molecular recognition groups and a hybrid metal ion and hydrogen bond mediated approach. One- two- and three-dimensional porphyrin films, polymers and crystals will be prepared and new methods developed for the characterization of these materials. Also, new photonic materials will be prepared via self-assembly. The focus of the educational activities will be the development of a course in supramolecular chemistry and efforts geared to high school science outreach. With this Faculty Early Development (CAREER) award, the Organic and Macromolecular Chemistry Program is supporting the research and educational activities of Dr. Charles M. Drain of the Department of Chemistry at CUNY Hunter College. Professor Drain will focus his research efforts on the synthesis and characterization of new materials. Arrays of five to ten porphyrins will be self-assembled to evaluate the possible formation of these materials, the mechanism of electron and energy transfer via non-covalent interactions and the process of self-assembly. The overall hypothesis to be evaluated is that highly ordered photo-active films, polymers and crystals may be systematically engineered by programming the correct bonding code into self-assembling monomers. The educational activities in the project include course development and out reach to high school students.